Isolation and Characterization of Neural Crest Subpopulations

The long-range objective of this project is to understand how subpopulations of neural crest cells differentiate into specific types of mature neurons during embryonic development. What genetic and other factors are at work? Dr. Barald and her coworkers have identified subpopulations of cells in the neural crest of chick and quail embryos with different biochemical properties. They have developed markers for these different subpopulations and techniques for separating these cell types while keeping them alive. They can now grow these subpopulations in culture and characterize their responses to a variety of regulatory factors as well as to examine the interaction of various genes important in cellular differentiation. By employing these methods, Dr. Barald's group will be able to answer the following questions: When does a neuronal population that is derived from the neural crest become determined, and therefore segregated from other cells in the crest lineage? Is the expression of the determined state plastic? Can it be modified by environmental cues in vivo or in vitro?